Numerical methods for heterogeneity and nonlocality

The PI proposes two main research thrusts. The first is to develop scalable
solvers, in particular, iterative substructuring methods, for integral
equation based nonlocal (NL) problems such as peridynamics (PD). As a
component in the first thrust, heterogeneity is incorporated to study
composite materials which is of utmost importance to numerous applications in
material science and structural mechanics. Within the first thrust,
robustness of the solvers with respect to heterogeneity and multiscale finite
element discretizations are the subsequent directions to pursue. The second
research thrust concentrates on preconditioning for partial differential
equation (PDE) based (local) problems with rough coefficients. The robustness
aspect strongly connects the first research thrust to the second. Since the
impact of nonlocality on solvers has never been studied before, the first
research thrust is unique, transformative, and has great potential to create a
solver subfield: nonlocal domain decomposition methods (DDM).
Solver research has the potential to reveal multiscale implications associated
to NL modeling. The PI proved fundamental results indicating that the weak
formulation of PD gives rise to conditioning bounds that are independent of
the mesh size, meaning that the length scale is carried by the horizon instead
of the mesh size. The study of composite materials requires solvers that are
robust with respect to heterogeneity as well as discretizations supporting
multiscale features and nonlinearities. For robustness, the PI will
capitalize on his existing preconditioning technology for (local) PDE based
problems. The second research thrust calls for a qualitative understanding of
the PDE operators and their dependence on the coefficients because such
understanding is essential for designing preconditioners. This process draws
heavily upon effective utilization of theoretical tools such as methods in
operator theory.
The resulting control of the behaviour of the operators should allow the
detection of the main features that provide a basis for the construction of
robust preconditioners. After discretization, singular perturbation analysis
(SPA) is used to detect and exploit algebraic features such as low-rank
perturbations and decoupling of solution parts to construct computationally
more feasible preconditioners.
With the insights provided by operator theory and SPA, one acquires control of
the effectiveness and computational feasibility simultaneously.

Scalable and robust solver technologies will create a great impact on modeling
and simulation capabilities in material science and structural mechanics, the
two vital fields that would maintain the nation's leadership in the aerospace
industry. There is imminent need for effective numerical methods in these
fields as composite materials have become industry standard. For instance,
Airbus and Boeing heavily use light weight composite materials in modern
aircrafts. NL models, especially PD, have become increasingly useful for
multiscale material modeling as well. The effectiveness of PD has been
established in sophisticated nanoscience applications such as fracture and
failure of composites, nanofiber networks, and polycrystal fracture. In
addition, the prediction of crack paths has been successfully modeled by PD.
Furthermore, NL modeling has been used in abundant applications which include
fracture of solids, stress fields at dislocation cores and cracks tips,
microscale heat transfer, and fluid flow in microscale channels. There are
other fields important to national interest where NL models are critically
needed for the effective modeling and simulation of complex phenomena.
Examples include evolution equations for species population densities, image
processing, porous media flow, and turbulence.